A Study of the Wind-Driven Surface Boundary Layer on the Southern Flank of Georges Bank

PI: Werner
Proposal Number: 0081176

Funds are provided for the analysis and interpretation of archived data from the wind-driven boundary layer over Georges Bank. These analyses will test the generality of recent findings concerning the dynamics of the boundary layer and extend them. The study will address what causes the flatness of the Ekman spiral during summer conditions, how the boundary layer dynamics are modified in winter when the surface and bottom boundary layers overlap, and under what conditions a one-dimensional model of the coastal surface Ekman layer is an adequate representation of the dynamics.